District Wide Wireless Network for Rural Schools

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years for a wireless system to connect seven school buildings in the five rural communities in the school district to the existing wireless connection to the University of Illinois at Urbana-Champaign. An antenna is mounted on top of a grain elevator to communicate with the schools.